Research Experience for Undergraduates at the Center for Great Lakes Studies

CUHEL 9423908 This project is a renewal of an on-going REU SITE in environmental aquatic science research. The research opportunities include studies in the chemistry, geology and/or biology of lakes and oceans. The combined activities provide the students with an appreciation of many of the elements encountered in a career in aquatic sciences.